Trajectories and Causes of Structural Globalization: 1800-2000

SES 0077975
PI: Christopher Chase-Dunn

This project tracks changes in world economic and political systems in the 19th and 20th centuries. Overall, those systems have become more similar and interrelated, changes that have led some observers to speak of a single world system at present. This project develops data on investment and political change to existing data on economic development and international conflict. The second phase of the work uses that dataset to examine how the various kinds of changes are associated with each other and which ones lead to others. Generally, as political uniformity increases, conflict decreases, and at least in some cases, increasing trade and economic development follows that. This project contributes to understanding these changes and how they affect each other.